Presidential Young Investigators Award

This Presidential Young Investigator Award is concerned with issues related to the theory of finite elasticity. In particular, questions concerning the differentiability and extendability of plane stress, plane strain or uniaxial stress potentials will be addressed.